Exploratory Research on the Fabrication of Specimens with Embedded State-Colored Cells

9705801 Chen Existing, experimental techniques can not provide a quantitative real-time measurement of the internal phase transition associated with localization under different loading, rates. Since localization is usually accompanied by local heating due to plastic work, an exploratory research project is proposed here to fabricate the experimental specimens with embedded state-colored cells to measure the real-time phase transition. It is proposed that the state-colored cells be made of a certain kind of thermochromic (TC) materials, the optical properties of which are able to chance reversibly upon temperature. Uniaxial compressive tests are then performed with these specimens to investigate the internal phase transition under different loading- rates. Because of the gel state of TC materials at certain temperature, it is possible that the ultimate cell for the proposed measurement may be composed of many smaller cells with a diameter of less than I mm, each covering a range of temperatures. With regard tot he actual measurement, it is anticipated that the cell will be subjected to radiation of the appropriate wavelength(s) to monitor the color change. The fabrication of the experimental specimens with embedded state-colored cells involves interdisciplinary efforts from chemistry, experimental mechanics, and material science. If the project is successful, however, there will be a significant impact on the modeling of localization, experimental mechanics and industrial applications.